CAREER: Enhancing molecular recognition biosensing with nanopore force measurements

1150085
Dwyer

Biological function emerges from a crowded, complex environment in which the exquisite
progression of intra- and intermolecular transformations is choreographed by the energy landscape
between interacting species. Molecular recognition exploits highly evolved molecular sensitivity to this
interaction energy to allow biological systems to respond selectively to low-level molecular signals in a
noisy molecular background. The goal of this proposal is to develop a technique that can probe these
interaction energies, enabling both the fundamental atomic-level understanding of molecular recognition
and its direct application for highly sensitive and selective biosensing. The core of this proposal is the
development and application of nanopore force spectroscopy (NFS), a technique that enables molecular
interactions to be probed on the single molecule level. Nanopores—molecular-scale holes in insulating
membranes—enable single molecule sensing without the cost or complexity of single molecular optical
techniques. While sensitive, nanopores lack robust native chemical selectivity. Aptamer molecular
recognition agents will be combined with NFS to overcome this deficiency. In addition, NFS will be
developed as a tool to probe and exploit broad classes of receptor-ligand interactions.
The proposed research will progress from NFS-based measurements of fundamental aptamer
properties such as conformational stability in the absence of target to characterizing aptamer
performance enhancements that leverage the unique molecularly-constrained and chemically tunable
NFS sensing environment. Following these initial control experiments, NFS measurements of aptamertarget
interactions will be used to optimize experimental conditions and then to explore the limits of
aptamer-NFS sensitivity and selectivity. The unique opportunities presented by the constrained nanopore
environment will then be explored through nonlocalized surface functionalization in which surface charge
is varied. This will provide the basis for the subsequent development and characterization of site-selective
surface functionalization in the nanopore interior. The insights that will emerge relating to chemistry in
constrained environments will be generally useful to the nanofabrication community. The effect of local
surface chemical modification of the solid-state nanopores on aptamer-NFS will then be explored before a
model drug-screening assay will be tested.
The intellectual merit of the proposed research is captured in the following points:
(1) The development and demonstration of nanopore force spectroscopy as a general method for
exploring and exploiting receptor-ligand interactions will (i) introduce a new tool to the force
measurement toolbox—one with unique tunable nanoscale properties and (ii) dramatically extend
the utility of nanopore methods. In contrast to other force methods such as atomic force microscopy
(AFM), NFS constrains molecules in a well-defined, molecular-scale environment allowing tuning of
the nanopore-molecule interactions as done by nature in an enzyme binding pocket.
(2) The development of chemically selective nanopore sensing by using “artificial antibody” aptamer
molecular recognition agents in combination with NFS will enrich nanopore biosensing capabilities.
NFS, itself, can extend the power and utility of aptamer sensing by providing a real-time, direct
measurement of aptamer-target interactions. Weak, nonspecific interactions otherwise leading to
false positives can be rejected.
(3) Inspired by the performance of site-directed mutagenesis, the development of a site-selective solid
state nanopore functionalization method will allow the extensive prior body of work on protein
nanopore functionalization to be transferred to more robust, tunable solid-state nanopores.
(4) The successful NFS measurement of the interaction between a DNA-bound small molecule and a
protein will serve as the proof-of-principle experiment that NFS is feasible for straightforward drug
screening.
The broader impacts of the proposed research include:
(1) The expansion of the force microscopy toolkit to include a robust, inexpensive, easy-to-use single
molecule nanopore method in a platform suitable for deployment outside the laboratory.
(2) The training of science and engineering researchers to become skilled science and engineering
communicators. Active outreach to increase the public’s understanding and appreciation of science
and engineering will target:
a. the general public through various media and community activities,
b. public relations students whose careers may include science and engineering communication,
c. K-12 students in a diverse, urban school through informal interactions and hands-on activities,
d. university undergraduates who will learn engineering skills as they fabricate inexpensive
diagnostic devices,
e. the researchers, themselves, through the emphasis on the importance of unifying scientific and
engineering activities to address human needs.